Texas Prefreshman Engineering Program Writing Project

The purpose of this project is to develop and distribute a complete kit for starting and conducting an intervention program for high school students, particularly minorities and women, considering a career in science and mathematics. This kit, based on the San Antonio Prefreshman Engineering Program (PREP), will consist of curriculum materials and operational materials. The textual materials will include modules in Logic and its Application to Mathematics, Problem Solving, Introduction to Engineering, Computer Science, Algebraic Structures, Introduction to Physics, Introduction to Technical Writing, and Introduction to Probability and Statistics--all of which are academic components in the first, second, or third year of PREP and were developed by the PREP writing teams. These teams consist of college and high school teachers as well as some of the students who have gone through the PREP program. The operational material will include program brochures, sample application forms, follow-up survey forms, and statistical table forms. Copies of this material will be made available at cost to those organizations interested in starting such an intervention program. There will be a two day workshop and a summer intern program to help those schools interested in such an intervention program.